Travel Grant: Postdoctoral Research Fellowship

This award is for travel under NSF Program Announcement NSF 04-566. It is intended to facilitate visits by prospective postdoctoral scholars to one or two organizations to meet prospective mentors and colleagues, to present seminars, to discuss mutual research and/or education interests, to evaluate facilities and professional development opportunities, and to initiate collaborative relationships. The applicant's area of research is in marine biology, working with whole organisms from an ecophysiological perspective, and this award will provide funds for a visit to the University of Alabama, Birmingham